Effects of Nonlinear Reorientation of the Reflection Surface on HF Absorption

This proposal call for studies in the area of HF-induced largescale density structures and wave fields. The studies focus on non-linear effects that arise because the HF reflection surface undergoes reorientation relative to the geomagnetic field during HF transmissions of high power with a long pulse.***//